AF: Small: Approximate Augmented Lagrangians: First-Order and Parallel Optimization Methods, with Applications to Stochastic Programming

Continuous optimization is a mathematical discipline with extensive
applications in engineering design and business/logistical planning.
Its currently most common solution techniques are difficult to adapt
to newly evolving computer architectures comprising dozens to
thousands of processing elements working in parallel. Combining
several existing techniques with some recent results of the principal
investigator, this project explores a means of solving continuous
optimization problems that should adapt more readily to parallel
computer architectures than present standard solvers, allowing the
architectures' full power to be brought to bear on large,
time-consuming problems. Without such new solution approaches,
solution of critical design and planning problems may not benefit from
most of the advances in computing power anticipated for the next
decade. The project will also involve cooperative work with the
Brazilian research community.

The technical approach is to capitalize on recent advances in
augmented Lagrangian and conjugate gradient algorithms to produce a
new kind of modular parallel continuous constrained optimization
solver. The solver consists of a classical augmented Lagrangian outer
loop, with subproblems solved by the a state-of-the art
box-constrained conjugate gradient method terminated by a recently
developed relative error criterion. The research consists of three
stages: the goal of stage one is to create an object-oriented, modular
serial implementation, test it extensively, and address some
theoretical issues. Stage two aims to evolve the stage-one substrate
into a parallel solver for which the user explicitly specifies how to
map the problem structure to multiple processing elements. Stage
three's goal is to automate the structure detection and mapping
process. Stages two and three will use stochastic programming
problems as test cases.